Mathematical Sciences: Degenerate Microlocal Methods and Geometric Analysis

The proposed research covers several problems in microlocal analysis. In particular the analysis of elliptic operators on singular or non-compact spaces. Certain approaches to conical and wedge-like singularities are proposed and applications to Hodge theory, the Yamabe problem and area minimizing submanifolds, are intended.